Biochemical and Population Aspects of Bioenergetic Evolution

The processes by which animals, plants, and other life forms adapt to patterns of environmental stress and variability will be studied in the context of how individuals acquire and use energy. An insect model system will be used; much progress has already been made in understanding this system, and general ideas derived from it have been shown to apply to life forms as diverse as bacteria, crustaceans, fish, and mammals. Natural genetic variation in the mechanisms of energy processing and allocation will be studied in the context of how these mechanisms are impacted by patterns of environmental change. The results will have importance not only for fundamental understanding of how living beings adapt to their environments, but potentially also for understanding how domestic animals, crop plants, or managed forest trees do so in the specific context of human agricultural/economic management and global climate change.